CEDAR: Modification of Jicamarca for Continuous, Low-Power Operation: The Julia System

9401750 Balsley The objective of this proposal is to provide Jicamarca Observatory users with the capability for making extended, long- term measurements of the lower atmosphere, the equatorial electrojet, spread F, and the 150 km echo at 13 dB reduced sensitivity. The PIs propose to add two new receivers, a pair of low-power (no-cost) transmitters, and an independent low-cost analysis system. ***